Communication Experiments for Widely Distributed Environments

9405931 Bhargava Purdue University "Communication Experiments for Widely Distributed Environments" This three year project conducts experimental studies on issues in the performance, reliability and scalability of wide area network software and paradigms. Applications investigated include distributed transaction processing, multi-media, mobile computing, digital libraries and geographic information systems.